Simulations of Strongly Correlated Materials

9406678 Jarrell This proposal concerns the simulation of highly correlated electronic systems. The systems include the high temperature superconductors, heavy Fermion materials and magnetic materials. The methods to be applied involve Quantum Monte Carlo, often coupled with analytical techniques. The properties on interest are dynamical response and the models of interest include the Hubbard, Anderson, Holstein and Kondo. In addition, the effect of magnetic impurities on week localization will be studied as well as 3D disordered correlated systems (via a disordered Hubbard model with strong correlations on a fraction of the sites). Also the PI will continue work on analytic continuation. %%% This proposal concerns the calculation of electronic properties in systems in which the electrons are highly correlated. Such systems include the high temperature superconductors and magnetic materials. Because these systems are so complex, the effort will be on the understanding of model systems - chosen because they incorporate most of the important physics of a wide class of materials. Thus generic behavior may be found. The properties of interest include transport coefficients (eg conductivity), spectra and the lifetimes of different states of a given system. The methodology involves sophisticated numerical simulation as well as clever techniques to extract information from the numbers so-found. This proposal represents strategic but fundamental work in the understanding of the basic physics of important technological materials. ***